Women in Science and Engineering

This project at Brown University provides personal support and enhanced academic opportunities for freshman and sophomore women planning to study the sciences and engineering. These opportunities include: (1) assigning each student to a faculty mentor who will serve as a science advisor and to an upperclass undergraduate peer mentor; (2) holding monthly group meetings to discuss scientific topics, lifestyle issues, etc., and (3) visiting laboratories, attending colloquia, and being involved in first-year laboratory experiences. It enhances the enriched academic environment that already exists at Brown University.